Image-Based Control of Movement-Induced Vibration During High-Speed Operation of Scanning Probe Microscopes

ABSTRACT
This research will address the critical problem of movement-induced
vibration that limits the operating speed of Scanning Probe Microscopes
(SPMs). It is noted that SPMs are key enabling tools in the experimental
investigation and manipulation of nano scale (and sub-nano scale) phenomena.
However, during high-speed operation of SPMs, movement-induced vibration
leads to damage of the sample and/or probe as well as modification of the
surface properties being investigated. Therefore, current SPM systems are
operated at low speeds; for example, high-resolution SPM systems operate at
around 1/100th of the lowest resonant frequency that excites significant
vibrations in the system. Thus, movement-induced vibration limits the
operating speed of current SPM systems. This work proposes to compensate-for
the movement-induced vibration and, thereby, to enable high-speed operation
of SPMs with sub-nanometer resolution, and without adverse affects such as
sample and probe damage. The novelty of the proposed approach is that it
will exploit the extant imaging capability of the SPM to increase the
operating speed. The proposed research consists of following three tasks:
(1) measure effects of dynamics using SPM images; (2) compensate-for the SPM
dynamics; and (3) evaluate increase in operating speed using Scanning
Tunneling Microscope (STM). The proposed approach will be used to evaluate
the maximum speed at which a STM can image standard samples such as carbon
atoms in highly oriented pyrolytic graphite (HOPG). The proposed
improvements of SPM, a key-enabling tool, will have a broad impact on
research and development in nanosciences and nanotechnologies. The proposed
work will also build the research and human resource infrastructure needed
to remain competitive in emerging nanotechnology industries.